FRG: Collaborative Research: Trace Methods and Applications for Cut-and-Paste K-Theory

This research brings together ideas, techniques, and insights from two long-standing programs in mathematics: scissors congruence and algebraic K-theory. Scissors congruence originated in Hilbert's 3rd Problem, which asks when two polyhedra in three-dimensional space are "scissors congruent," meaning one can be obtained from the other by cutting it into smaller polyhedra and reassembling in a different way. This question, together with its solution by Dehn, initiated an extensive program of research. Over the past 120 years these ideas have grown and now connect to almost every branch of geometry. Ground-breaking recent work provides a fundamental link between this program and algebraic K-theory, which is itself a deep and rapidly developing area of research. Algebraic K-theory intertwines three major fields of mathematics: topology, algebraic geometry, and number theory. Developing the connection between scissors congruence and algebraic K-theory will significantly advance research in both. This work also provides the platform for striking new research avenues that will bring to bear the tools and techniques of modern algebraic K-theory research on a wide range of geometric questions. This project additionally includes a number of efforts to support students and new researchers in the field, expanding and broadening access to these innovative ideas.

This broad new program of research develops the foundations of combinatorial, or "cut-and-paste," algebraic K-theory, applies these new tools to resolve outstanding geometric questions, and expands the scope of combinatorial K-theory to new applications. It brings modern techniques in algebraic K-theory to the emerging K-theoretic approach to cut-and-paste invariants, and applies this approach to a variety of problems in algebraic topology, differential topology, and algebraic geometry. Algebraic K-theory has seen a stunning revolution in the last thirty years due to the invention of trace methods, but these tools have not yet been developed for combinatorial K-theory, a deficiency that this project hopes to remedy. This requires developing the foundations of this new theory and exploiting connections to equivariant homotopy theory. New computational and analytic tools for combinatorial K-theory will lead to progress on a wide variety of geometric problems, including applications to manifolds and invertible TQFTs, varieties and motivic measures, and fixed point theory. Many questions in these fields have natural interpretations in terms of cut-and-paste invariants.